Computer Science, Engineering and Mathematics Scholarships

We are targeting students pursuing associate or bachelors-level degrees and include a number of measurable objectives, including an increased retention/ completion rate for CSEMS students. Scholarship holders are encouraged to seek internships or work place experiences with regional industry, as appropriate for their disciplines. These internships/ experiences may take place either during the academic year or summer.